SHF: Small: Adapting Dataflow Analysis for Efficient and Precise Parallel Program Monitoring

Due to the industry-wide shift to multi-core processing, future
applications will only run faster if they are written as parallel
software (i.e. where the work for a single program is accomplished by
simultaneously performing different parts of that work on different
processors). Unfortunately history has taught us that writing
parallel software is a very error-prone task for programmers. To
address this challenge, this research project is creating a powerful
new mechanism for identifying and hopefully fixing bugs in parallel
software on large-scale production systems. Hopefully the resulting
framework will not only support the parallel execution of existing
monitoring tools, but it will also spawn the creation of new classes
of powerful tools that can recognize subtle bugs in parallel software.
Such tools can help programmers continue to reap the performance
benefits of future microprocessors, thereby continuing to enable all
of the benefits that increasingly-faster computation has had on the
economy, science and technology, and our everyday lives in an
Internet-connected world.

More specifically, the focus of this project is on sophisticated
online program monitoring tools that model various aspects of program
correctness at an instruction-by-instruction granularity. To strike a
practical balance between performance, precision, and convenience for
the tool developer, this research has developed a novel framework that
introduces explicit "windows of uncertainty" combined with a new
approach for avoiding a state space explosion in the analysis
(inspired by Tarjan's interval analysis approach to dataflow analysis).